Digitization and Data Processing of Records from the Whittier Narrows Earthquake of October 1, 1987

The strong motion data recorded during the Whittier Narrows (California) earthquake of October 1, 1987 included not only ground motion data, but also a detailed record of the motion induced in buildings. The type, quality and quantity of this data is unique and constitutes a potential source of information on many aspects of earthquake hazard mitigation. To realize this potential, the data must be digitized and processed. Moreover, correlation and comparison between records from different sites requires a knowledge of the absolute times at various strong motion stations: this can yield detailed interpretations of the response of structures. This action is to provide funds for the processing of the strong motion accelerograms maintained in the Los Angeles basin by the University of Southern California.